Software Development for Macromolecular Crystallography

An efficient high speed computing environment is essential for protein and virus crystallography. X-ray data collection, data processing, phasing of structure amplitudes, constructing molecular models and structure refinement are all computationally intensive procedures. This award will continue the support of the computing specialists in the crystallography group at Purdue. In particular the group will pursue the following specific computing objectives: generalizing codes to make programs machine independent, develop detector and computer independent software for analysis and processing of X-ray data, continue software development for the determination of phases of structure factors.